"1995 DAMOP Meeting", Toronto, Canada; May 17-19, 1995

9510118 Lin This proposal is for support of students and young researchers to attend the 1995 DAMOP meeting in Toronto, Canada. This conference is the major meeting of Atomic, Molecular and Optical Scientists in the US. ***